Critical Thinking and Problem Solving in the Foundations of Computer Science

This workshop focuses on approaches to developing thinking and problem solving skills in introductory level courses by integrating problem solving, mathematics, and computer science. Educators in both the mathematics and computer science disciplines have observed and commented on the weaknesses of entering students. Students are unable to solve problems and lack mathematical maturity. Such weaknesses should be addressed early in the curriculum. Mathematics and computer science are closely related disciplines with one drawing upon the other. This relationship is utilized to encourage students to learn to use mathematics as a problem solving tool for computer science, and how mathematics can be used to motivate an understanding of concepts fundamental to computer science. Mathematics and computer science faculty with a better understanding of these important relationships will be more effective teachers. The target audience is faculty who are actively engaged in teaching undergraduate mathematics and computer science courses. Minority and women, groups underrepresented in mathematics and computer science education will be encouraged to participate. The two week intensive program introduces them to new approaches for integrating mathematics and problem solving into computer science courses, and using mathematics concepts to motivate a better understanding of computer science concepts. //